Travel to Attend: International Workshop on Innovation, Technological Change and Spatial Impacts; Melbourne, Australia; August 21-24, 1985

This travel award will enable a researcher to participate in the "International Workshop on Innovations, Technological Change and Spatial Impacts". The researcher is a member of the Workshop Steering Committee and will present one of the major topic papers at the conference. The proceedings of the conference will be published and distributed on a worldwide basis. The participation of this researcher at the conference will bring credit to the United States and will enable him to keep abreast of the activities in his field by others from other countries.